An Experimental Work Station for the Electronics Laboratory

Four experimental workstations are being built. These stations are being used in undergraduate electronic laboratories in order that students learn about and participate in computer control and interfacing. Each station, when completed, will consist of a personal computer equipped with appropriate interface boards and a high-speed digital signal processor. With these workstations, students will learn how to gather and analyze experimental data. Although this equipment is being used principally in our electronics lab course, it will greatly enhance and benefit all of our advanced undergraduate laboratory courses.